Mathematical Sciences: The Geometry and Analysis of CompleteManifolds

Li was originaly supported on a grant at the University of Arizona. This award is for the continuation of that project at the University of California at Irvine.